Risk communication and public participation during the investigation of cancer clusters

Every day in the United States, on average, three communities reach a
sufficient state of concern to contact their state health department for the
investigation of a suspected cancer cluste, ran unusual and unexplained
increase in the occurrence of cancer in space and time. State health
departments investigate about a third of these cases in one way or another,
but find that very few (about 1%) present suspect cancer rates. However,
these cases of community concern and health department response present an
effective circumstance in which to investigate risk perception, risk
communication, and public participation in risk analysis. This project is
the continuation and expansion of an established research effort designed to
examine the social and psychological circumstances surrounding
citizen-initiated cancer cluster investigations, with an emphasis on two
aspects: the effects of state health department communications, and the
experiences of citizens and officials in public meetings held during these
cases. To meet the first goal, the project will integrate, and develop, two
primary theoretical models, one central to risk perception (the Psychometric
model) and one central to information processing and decision making (the
Heuristic-Systematic model). Previous work in this effort has examined a
series of five such cases. This expansion will use mail and phone survey
methods to look at a larger and more diverse set of cluster investigations
(about 50), enabling a comparison across cases. The analysis will continue
the refinement of a model that describes the effects of information provided
to communities in these cases, and will also evaluate the effects of the
specific circumstances unique to theses cases (e.g., types of cancer,
suspected causes). The analysis will also focus on the different
communication techniques used by various state health departments to convey
the results of their epidemiological investigations. To meet the second
goal, a set of five cases will be more deeply studied with an emphasis on
the public meetings that are almost always an important feature of these
community experiences. That effort will make further use of mail and phone
survey methods, and will also make use of extensive interviews and focus
groups. Overall, the project is expected to provide a detailed examination
of how information is conveyed in these cases, and how citizens make use of
information to reach, or modify, their orientation toward concerns about
cancer rates.

Relative to scientific interests in risk perception, one of the most
interesting aspects of this investigation resides in the fact that cluster
cases almost always present a circumstance in which the scientific evidence
indicates little or no risk, yet that evaluation is couched in the
probabilistic language of cancer epidemiology. This investigation will
advance scientific understanding of how individuals react to this form of
information, a problem that has been a long-standing concern in the fields
of psychology, social-psychology, and risk communication. In more practical
terms, this project is also designed to evaluate the methods by which this
form of information is provided to communities. The analysis will illuminate
the more effective means of communicating the results of epidemiological
studies and as such will provide important and useful feed-back for those
who are charged with that work. The project's ultimate goal is that this
kind of information will be communicated more effectively and the
communities involved in such cases will be better served.